Systematics and Historical Biogeography of Toothed-lipped Gobies of the Indo-Pacific

The toothed-lipped gobies are a group of some thirty to forty species of fishes distributed in insular freshwater streams throughout the Indo-Pacific. They are distinguished from all other fishes by a unique typed and arrangement of teeth in their jaws and also on their gill arches. This study is aimed at describing the tooth arrangement; determining the number of recognizable species; and describing how the species are related to each other. Distribution of plants and animals throughout the Indo- Australian Archipelago has held a particular fascination for naturalists since the last century when Alfred Russel Wallace attempted to divide the biota into an Australian and an Asian segment. The toothed-lipped gobies are born and live most of their lives in freshwater but make a larval migration to the sea. This unique lifestyle will be examined to understand how these gobies came to be widely distributed on oceanic islands.